Analysis of Effective Science Coaching: What, Why and How

The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools (RMTs). Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.

This Exploratory project will conduct an in-depth analysis of instructional coaching by analyzing 520 hours of archived video-recorded coaching sessions with 75 middle and high school science teachers in grades 6-12 collected in a U.S. Department of Education IES-funded coaching research study. The goal of the project is to "unpack" the coaching intervention by analyzing the videos and previously collected quantitative outcome data to (a) create descriptive profiles of instructional coaching and (b) identify which key coaching elements ("active ingredients") lead to desired teacher and student outcomes.

Following a design-based research approach, relying on iterative feedback and using data saturation process to analyze data, the project will translate theorized, conceptual characteristics of coaching into empirical models to guide future coaching research and practical guidance through identification of critical elements needed for coaching to work.